Travel Support for IUPAP Statphys-20 Conference; Paris, France; July 20-25, 1998

9803732 Stanley This grant will provide funds to assist graduate students, postdoctoral associates and younger faculty members to attend the 20th International Union of Pure and Applied Physics Conference on Statistical Physics to be held in Paris, France, on July 20-25, 1998. The grant is supported by the MPS Office of Multidisciplinary Activities and the Divisions of Materials Research, Chemistry and Mathematical Sciences. %%% This grant will provide funds to assist graduate students, postdoctoral associates and younger faculty members to attend the 20th International Union of Pure and Applied Physics Conference on Statistical Physics to be held in Paris, France, on July 20-25, 1998. The grant is supported by the MPS Office of Multidisciplinary Activities and the Divisions of Materials Research, Chemistry and Mathematical Sciences. ***